Purchase of a Step-Scan FTIR Spectrometer and Accessories

This award from the Chemistry Research Instrumentation and Facilities (CRIF) Program will assist the Department of Chemistry at University of North Carolina at Chapel Hill to acquire a step-scan FTIR spectrometer. This equipment will enhance research in a number of areas including the following: (1) the application of time-resolved infrared spectroscopy (TRIR) to short lived excited state species and intermediates in the photophysics of transition metal-polypyridyl systems and (2) the application of TRIR and rotationally-resolved IR to the processes of aerosol nucleation and combustion. A Fourier transform infrared (FT-IR) spectrometer and a time-resolved IR (TRIR) can provide important information about molecular and electronic structure of short-lived transient intermediates. Their use may enable breakthroughs in our understanding of the properties of reactivity and non-reactivity of molecules..